Inorganic Monolayers Formed at Organic Templates

9530453 Talham This proposal outlines a continuation of a prior NSF research for the development and characterization of new mixed organic/inorganic monolayer and multilayer thin film materials formed using Langmuir-Blodgett (LB) methods. The approach is to incorporate inorganic extended lattice structures into organic monolayer assemblies thereby introducing into the films structural features and cooperative phenomena which are inherent to many inorganic lattices, while at the same time maintaining the monolayer control afforded by the organic assembly. Layered solid- state structures will be used because they offer the highest probability of success as the inorganic lattice energy clearly favors forming layers. Specifically, the proposed research consists of three efforts: 1) To expand on the protocol developed for preparing new LB materials containing extended-lattice inorganic networks. 2) To chemically and structurally characterize new materials and account for structural differences. 3) To investigate the magnetic properties of paramagnetic materials. %%% Several classes of mixed organic/inorganic assemblies have received attention recently as researchers have realized that through the combination of organic and inorganic networks a vast array of new solid-state structures is possible often with tunable bulk and interfacial properties. Examples include pillared clays, organic/inorganic layered solids, zeolites with organic guests, self-assembled organic films at inorganic surfaces, and inorganic mesostructures formed with the aid of organic surfactants. In addition to the structural and chemical diversity that these classes of materials promise, the combination of organic and inorganic components into a "dual-network" assembly opens the possibility of engineering into one material a composite of physical properties that are normally only associated with one type of material or the other. An example of a potentially interesting "dualnetwork" material would be one that combines a magnetic inorganic lattice with a conducting organic network. Despite the tremendous potential, detailed studies of these types of materials are still quite young. The proposed research addresses three important questions. What drives the solid-state structures and how can they be controlled? If composite properties are desirable, how can this be achieved? How can coupling of the networks be tuned to behave separately or in synergy?